Research in Undergraduate Institutions: MACRO Neutrino Physics at Swarthmore

9629804 Longley In this RUI proposal Professor Longley requests support for participation in the Macro Collaboration for himself and two undergraduate students. This group will analyze events with upward going neutrinos for the study of neutrino oscillations. ***